The Nature of Biology

9552894 Stinemetz Rhodes College will continue a four week commuter program for Young Scholars in Biology for 32 rising 10th-12th grade students. Student recruitment will include those from underrepresented groups who live in Tennessee, Arkansas, and Mississippi. Students will design, conduct, analyze, summarize and present research in the forms of posters and peer presentations at weekly gatherings. Professionals will introduce students to a variety of careers and resource information regarding college application and matriculation.